EDUCERE: Ensuring Diversity and Undergraduate Completion: Enrichment and Retention In Engineering

Northern New Mexico College serves a 77% underrepresented minority and underprepared population with high attrition rates in the first two years. The College of Engineering and Technology is developing a research-generated knowledge base of how this student demographic best learns complex foundational Physical Science concepts by using the evidence-based Wright State model to create an introductory Physics course with project based activities that students will take prior to a theory-based Physics course. Students are being tracked to determine if this intervention leads to increases in learning, ability to apply concepts, and retention. Additionally, Native American and Hispanic students with high degrees of interdependent self-construal are being studied to determine if they respond better to active learning prior to theoretical learning.

The investigators will use a matched subjects samples methodology and a modification of the Solomon four-group research design. In addition, undergraduate research experiences are being studied to determine if they foster retention and greater clarity on future career pathways among these unique populations. The project expects to generate new scientific knowledge of effective interventions leading to retention in engineering among students from rural and tightly knit communities. For example, advances in understanding of how under-prepared populations best learn; contributions to education research regarding effective practices in engineering teaching and learning among understudied groups; and discoveries on successful strategies that can broaden participation of Native Americans, Hispanics and women in engineering programs. The proposed work is likely to produce a model that can be disseminated to other institutions facing similar challenges, or those that are focusing on diversifying engineering undergraduate population in their programs.